Mathematical Sciences: The Schrodinger Equation

Herbst will conduct research in the area of partial differential equations in quantum mechanics. The problems to be considered concern scattering theory and the asymptotic behavior of solutions to the Schrodinger equation which describe bound particles. The former work will involve eigenfunction expansions diagonalizing N-particle Hamiltonians and the investigation of the scattering theory of homogeneous potentials of degree zero. Modern physics, quantum mechanics and relativity, is a product of the twentieth century. It is founded firmly in the last century's attempt to address the microstructure of matter and to come to grips with the concepts of action-at-a distance, electro-magnetism, and heat radiation. The mathematical foundations for these developments, collectively called mathematical physics, ranges from detailed analysis of Schroedinger operators, which governs the dynamics of particles, to unified field theory, which attempts to unite the four known forces into a single theory.